Computerization of the Introductory Physiology Laboratory.

Computer-based technology in areas of data collection, storage, retrieval, display, manipulation, and interpetation is growing rapidly. Use of such technology provides an excellent learning environment/program in an introductory Human Physiology laboratory. For some years, students have collected and interpreted data related to physiological concepts by using transducers, monitors and bioamplifiers. By combining an IBM XT computer and Coulbourn's physiology research system, students now are able to store the data and to develop simulations based upon them. Use of such models permits them for example, to observe the effects of an experimental intervention without actually putting the subject at risk. The system is bridging concepts in physiology and computer information management, allowing students to further advance their science education as well as to develop their skills with computer applications.